Collaborative Research: Algebraic Multigrid Methods: Multilevel Theory and Practice

The primary goal of this collaborative proposal is to develop
theoretically based algebraic multigrid (AMG) solvers for Hermitian
(and, where possible, non-Hermitian) positive-definite problems. The
team aims to improve understanding of the performance of the family of
AMG algorithms and, with this improved knowledge, to develop AMG
methods that offer provable, computable, a priori information on the
algorithm's performance. The project team represents a close
collaboration of experts in this area, each of whom has made
contributions in the field. Over the past several years, the team has
begun to work collectively on developing new multilevel solvers and
rigorous theoretical results for the convergence and complexity
analysis thereof. Together, the team will have the capability to take
a step toward answering some of the fundamental research questions
associated with these two essential aspects of the analysis and design
of efficient algorithms.

We expect the work proposed here to: (1) directly impact computational
simulation codes currently employing multi-level solvers, by providing
faster and more reliable computational tools for the numerical
computations at the core of physical simulations; and (2) allow for
simulation of phenomena for which suitable solvers are currently
unavailable. The results from the proposed research will, thus, have
a direct impact on scientific and engineering problems, including
those from energy, through both the simulation of particle physics and
processing of data from oil reservoir models, biophysics, in surgical
simulation, and the environment, in climate prediction and contaminant
remediation models. The algorithms to be investigated here are
already in use in many of these fields, but are often considered to be
"expert-only" tools. The goal of this proposal is to develop more
reliable and robust versions of these tools. The proposed research
will have a strong educational impact as well, as it provides for a
solid base for training of graduate students in the modern theoretical
and practical aspects of numerical methods for modeling of
applications arising in science and engineering.